Dynamics of the Middle Ear Ossicles

The purpose of this fundamental bioengineering research is to produce a mechanical engineering model of the ossicles bones of the inner ear. Such a model is important and necessary in the investigation of the pathological states of the inner ear. The PI will initiate a research program of experimental and theoretical investigations designed to illuminate the dynamics of the ossicular chain.